Dissertation Research: An Examination of Lithic Technology During the Transition from Late Pleistocene to Modern Environments in the Upper Kolyma Region, Western Beringia

ABSTRACT OPP-9612532 GRAYSON/KING This dissertation project will use data from the Upper Kolyma region, northeastern Siberia, to undertake a broad examination of stone tool technology over a 4000 year period (11,000 - 7,000 B.P.). The proposed research involves an analysis of material from three sites (Uptar, Kheta, Buyunda), an analysis of assemblage variability using published reports, and the investigation of the potentials of an environmental model for explaining artifact variability in this region. This study will make a significant contribution toward understanding the early prehistory of northeastern Siberia. A regional analysis of tools and manufacturing debris, and the environment in which people made and used tools, is prerequisite to an understanding of the earliest settlers of Beringia and the New World.